SGER: Ultrasound and a Supercritical Antisolvent Based Manufacturing of Nanoparticles

Abstract 9801067 Gupta/Auburn University The objective is an exploratory research on the generation of nanoparticles in an expansion jet of supercritical solvent solutions in the presence of an ultrasound field. The ultrasound field is placed orthogonal to the solution jet, and it is expected that will increase the mixing rate of the antisolvent in solution, and will create a drift velocity for the particles. The technique will be tested by the formation of polymer nanoparticles both with and without encapsulation of other materials. The addition of the ultrasound field is expected to reduce the range of particle sizes by about 100 times. If successful, the research will have impact on generation of fine particles and advanced materials.